POWRE: Temporal and Spatial Variations of Temperature and Chlorophyll-A in NE Coastal Waters Using Satellite Imagery an in Situ Data

This proposal was submitted to the NSF-wide Professional Opportunities for Women in Research and Education (POWRE) program. The PI proposes to integrate satellite images of sea surface temperature (SST) and chlorophyll-a with in situ data for northeastern coastal waters. The PI will use data from two satellite instruments, an Advanced Very High Resolution Radiometer (AVHRR) and the Coastal Zone Color Scanner (CZCS). By comparing two satellite images that have the same resolution, the processes controlling productivity can be better understood. The remotely sensed data will be supplemented with in situ meteorological data collected from NOAA buoys, data from tide gauges and chlorophyll-a data collected from ships of opportunity. In particular, the PI will attempt to understand the relationship between temperature fronts and productivity in the northeastern coastal waters.